Application of Riemann-Hilbert Techniques To Problems Involving Stationary Axisymmetric Perfect Fluid Sources

***
9800091
Ernst
The recent discovery by Neugebauer and Meinel of an exact global solution of the stationary axisymmetric Einstein field equations corresponding to a rigidly rotating disk of dust has created renewed interest in solving problems related to spinning perfect fluid bodies. Dr. Ernst and Dr. Hauser will apply their homogeneous Hilbert problem (HHP) technology to the matching problem to which consideration of stationary axisymmetric spinning sources gives rise.

With the objective of identifying some useful relativistic analog of the rotating homogeneous Maclaurin ellipsoids of Newtonian theory, Dr. Ernst and Dr. Hauser will investigate the variation of the fluid solutions with certain constraints [e.g., maintaining a certain equation of state]. In particular, they will investigate those variations that preserve the existence of an exterior solution that is asymptotically flat and singularity-free.
***